U.S.-Argentina Workshop: Molecular Cell Biology of Endocytosis and Intracellular Transport; Mendoza, Argentina,October 1995

95005083 Stahl This U.S.-Argentina Workshop award supports travel expenses of the P.I., Dr. P. Stahl, Washington Univ. , Saint Louis, MO., five other senior scientists, and three post-doctoral fellows to the workshop which will be held at the Universidad de Cuyo, Mendoza, Argentina, in October, 1995. Travel expenses will also be provided for five South- American Fellows, from countries that are not covered under bilateral agreements with NSF. Some expendable supplies and services related to the workshop will also be covered. The Argentine co- organizer is Dr. Luis Mayorga of the Universidad de Cuyo, Mendoza; other Argentinean scientists involved in the workshop are Drs. Lopez and Sosa, also from the Univ. of Cuyo, and Dr. Maccioni, from Cordoba University. Over the past decade significant progress has been made in the understanding of the cellular and molecular basis of intracellular transport. Fundamental processes, such as secretion, endocytosis and mitosis, processes requiring selective and specific membrane fusion events, are increasingly open to study. Applications of new techniques to a variety of cellular systems, both in plants and animals provides unique opportunities to further expand the level of understanding of vesicular transport. The workshop will provide a unique opportunity to explore these developments, by gathering a small group of scientists from several laboratories from North and South America to exchange ideas about their work on the cell and molecular biology of intracellular transport. The workshop will substantially enhance and extend a very productive international collaboration between U.S. and Argentinean scientists, as well as scientists from other Latin American countries. The workshop will also provide an opportunity to engender long term interactions among faculty and students. This is particularly attractive, since the students will be, for the most part, in the formative years of their training, and wi ll be in an optimal position to benefit from potential international exchange. ***